Purchase of a 500 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will help the Department of Chemistry at the University of Colorado--Boulder acquire a 500 MHz NMR Spectrometer. The research activities to be supported include: (1) development of stereoselective synthetic methods and sequential reactions schemes; (2) investigations of adriamycin-mediated DNA cross-links; (3) the development of stereoselective and catalytic asymmetric methods for organic synthesis; (4) synthetic and bioorganic studies of DNA and RNA; (5) structure determination of proteins; (6) the total synthesis and bioorganic studies of natural products and complex carbohydrates. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers and catalysis, and in biology.